Magnetospheric and Ionospheric Research Using CUPRI

Swartz/Cornell University Project Summary The Cornell University Portable Radar Interferometer (CUPRI) provides data for studies of ionospheric plasma and neutral turbulence. CUPRI probes a variety of auroral and mid-latitude E- region phenomena, F-region chemical releases, equatorial spread-F, and the polar mesosphere. This renewal project will fund the continuing acquisition, analysis and interpretation of CUPRI data. Both undergraduate and graduate students will continue to play a role in CUPRI operations, data analysis, and data interpretation.